Acquisition of a Scanning Electron Microscope

A scanning electron microscope will be acquired to resolve external microstructure of dinoflagellates, parasites, mollusks, lobsters, and animal parts. The instrument will be used principally in descriptive studies to resolve conservative morphological features and delineate variation within and among species for the purposes of taxonomic identification, classification, parasite host specificity and interactions, distribution patterns and ecological relationships, aging of larval fishes, and characterization of sensory structures.